Alaska EPSCoR Research Infrastructure

The Alaska EPSCoR Research Infrastructure Improvement Project (Phase II) will
build capability and capacity in the research areas of engineering, integrative
physiology, population genetics, and arctic social sciences. A bioinformatics core
will refine computational tools associated with the physiology and genetics
research areas.
Engineering design issues are barriers to development in the state.
Infrastructure and systems for cold regions will involve research activities with
heat transfer in permafrost soils that underlie roads, building, and other
structures and are subject to seasonal melting.
Integrative aspects of environmental physiology will focus on collaborative
research applying molecular technologies to physiological problems.
Researchers will study hibernating ground squirrels and black bears which offer
unique opportunities to explore the modulation of gene expression to endure
stress .
Researchers in population genetics of adaptation to arctic and alpine
environments will use technologies already developed with EPSCoR assistance
to mine organisms for genes that allow existence in cold regions.
In addition to faculty hiring and acquisition of equipment in the research areas, a
number of education and outreach activities for K-12, undergraduates,
graduates, and faculty will also be supported in Phase II, including the Alaska
Rural Systemic Initiative, the GLOBE program for K-12 student and teachers,
Phase 0 SBIR assistance, and Young First Investigator Awards for faculty.
Institutions participating include the University of Alaska-Fairbanks (UAF),
University of Alaska-Anchorage (UM), University of Alaska-Southern (UAS) as
well as K-12 schools.